Characterization of Crustal Reflectivity Patterns through Enhanced Imaging, AVO Analysis, and Integration of Seismic Reflection and Refraction Datasets

ABSTARCT
PI: HARDING
INST. UNIVERSITY OF CALIFORNIA-SCRIPPS-SD
PROPOSAL # 0137184

Award is for a project to further analyze seismic data collected during a cruise in 1999 that was undertaken to identify potential drill sites for a deep penetration, reference crustal section in the Guatemala basin. The crust in this area was created during an episode of rapid spreading during the middle Miocene. Because of the rapid spreading rate, theory suggests that the depth to the dike-gabbro transition should be shallower and therefore more accessible to drilling. The proposed work will include 1) waveform modeling of bright UCR reflections, 2) integration of reflection and refraction datasets, 3) slant stacking/basement velocity determination, 4) simultaneous P- and S- wave inversion/anisotropy investigations, 5) prestack depth migration of UCR/LCDRs, and 6) characterization of reflectivity patterns at other survey sites.